Electroreductive Cyclization Reactions in Organic Synthesis (Chemistry)

This project dealing with the use of electrochemical techniques in organic synthesis is being supported by the Organic and Macromolecular Chemistry Program. Linear molecules containing two or more distal functional groups are being subjected to electrolysis to generate a radical anion at one site which will react by carbon-carbon bond formation at the other functional group resulting in the formation of ring-containing compounds. This research is centered on an attempt to understand the various factors which govern the cyclization process. Electroreductive cyclization reactions are being studied in detail with a special emphasis placed upon an examination of the following items: A. 1. Can substituents positioned at "strategically important locations" on the tether be used as stereocontrol elements allowing for the regulation of both relative and absolute stereochemistry? 2. Can proton donor surrogates (e.g., Me3SiCl) and/or captodative effects be used to facilitate cyclization at the expense of the unwanted C-C pi bond hydrogenation which occasionally accompanies electroreductive cyclizations involving ketones? 3. Can electroreductive cyclizations be conducted using a substrate wherein the alpha, beta-unsaturated ester unit is tethered to an ester (a lactone), an acid anhydride, or an acid halide? 4. Can the results of these investigations be used to design and implement a rational synthesis of the biologically important and architecturally interesting phorbol esters? B. Can mediators such as vitamin B12 or cobaloxime be used in electroreductive cyclization reactions and, if so, can the reactions be conducted catalytically? The results of these studies are being applied to model studies directed toward construction of bicycloı5.3.O!undecane framework common to a host of natural products. C. Finally, the synthetic utility of electroreductive cyclization reactions involving systems containing the carbon-carbon triple bond (e.g., alkynones and alkynoates) linked to an easily reduced alkylidene malonate or an alkylidene Meldrum's acid subunit is being examined. In this way, the initially formed alpha, beta-unsaturated carbonyl compound should be inert to the conditions under which the reduction is conducted and will consequently be available for further elaboration. Additional studies focusing upon the use of a cyclopropyl Meldrum's acid subunit (a spiroacylal) are being carried out.